CBMS Regional Conference in the Mathematical Sciences - Numerical Methods for Nonlinear Elliptic Equations - Spring 2007

Nonlinear elliptic partial differential equations (PDEs) arise in many areas of mathematics, sciences and engineering. Their numerical solution has continued to be an important and popular research field. The conference will pull together the major ideas and recent results on numerical solution of nonlinear elliptic PDEs and chart directions for future research.
The Principal Lecturer is an internationally well-known expert, Professor R. Glowinski, who will deliver ten lectures on a relatively large set of methods allowing the numerical solution of a variety of nonlinear PDEs. Particular attention of the lectures will be given to modular methods based on relatively simple components. The lectures will discuss the solution of nonlinear eigenvalue problems, of fully nonlinear elliptic equations of the Monge-Ampere type and of some elliptic variational inequalities from Continuum Mechanics. The conference will serve as a forum for researchers working on different aspects of numerical solution and applications of nonlinear PDEs to interact and to exchange and promote new ideas, results and techniques on solving nonlinear elliptic PDEs and their interdisciplinary applications. It will also provide an opportunity for graduate students and young mathematicians to learn quickly new problems and techniques in the area. It will greatly contribute to the advancement of research on numerical methods for nonlinear elliptic PDEs, and will help to enlarge the personnel base of the nation for next generation numerical analysts and computational scientists.